REU Site: Tomography in Civil and Environmental Engineering

This award provides funding to Louisiana State University, for a three year REU site program in Tomography in Civil and Environmental Engineering, under the direction of Dr. Roger K. Seals. This program will be held each summer for 10 weeks, for 10 undergraduate students and will focus on research activities and training in the use of tomographic techniques in civil and environmental engineering.